Interactive Petrographic Instrumentation In Geology

9351748 Miller A petrographic microscope with a CCD camera and video display, and computerized image analysis capability, is being integrated into the research-based, field-oriented curriculum for geology majors. The microscope is being used by students throughout upper level courses in the major, and a revised curriculum culminates in senior research projects that integrate microscope use. The students are being trained to use the microscope in Optical Mineralogy, where it is first being used as a demonstration tool. By the end of this course, students are competent in hands-on use of the microscope. As they become proficient with petrographic techniques, students are continuing to use the microscope in other upper level courses, including petrography classes. Seniors are designing petrographic research problems during their winter field course, and collecting appropriate sample suites in the field. Upon their return to campus, they are gathering data to answer the problems they are posing in the field. The results are being included in their Senior Research Reports, oral presentations to the department, and talks at professional meetings.